Doctoral Dissertation Research: Argument Realization and (Non-)agreement

The distinction between arguments and adjuncts is assumed to be a universal distinction made by languages and is specifically built into the architecture of many modern syntactic theories. Broadly speaking, arguments are phrases that the verb requires to form a complete meaning, while adjuncts add in optional extra information. Recent linguistic investigation has identified a language that challenges the argument-adjunct distinction as a linguistic universal in two ways. First, while most arguments are weakly distinguished from adjuncts by being marked on the verb, certain typical arguments lack even this as a distinguishing feature. Second, the processes for reducing a verb’s arguments seem to operate through generalized mechanisms that may ignore the verb’s specific meaning, unlike in other languages. The documentation here will form a core component of the doctoral dissertation of the Co-PI. Broader impacts include a publicly available deposit of recordings and transcriptions at a digital repository housed at the University of Texas at Austin.

This project examines secondary objects and middles within a larger investigation of argument realization in a language that allows at most one object to be indexed on the verb; thus there is currently no distinction between secondary objects and unindexable adjuncts. This project explores three questions about secondary objects: (a) do secondary objects introduce new participants or realize those already in the predicate's meaning; (b) what is the grammatical function of secondary objects and are they distinct from other dependents; and (c) what factors govern which dependent is indexed on the verb? Finally, this project aims for a fuller description of middle constructions, with a focus on how the lexical semantics of the verb affects its behavior in middle contexts, and how such argument suppression interacts with argument realization properties.